Analysis and Characterization of Multi-Phase Systems with Application to Optimal Design

9700638 Lipton The analysis and optimal design of multi-phase systems is central to the development of advanced materials for use in electronics, transportation systems, and aerospace applications. From the perspective of human physiology it is critical to understand transport phenomena in complex biological systems. This project addresses areas where improved knowledge of transport properties for multi-phase systems will have a large impact on technology. A significant part of this project focuses on the behavior of composites with imperfectly bonded components. Imperfect bonding between constituents is often the rule. Imperfect bonds are frequently the result of damage to the structure incurred during use. The first project treats the design of fiber reinforced materials in the presence of imperfect bonding between the fiber and the matrix material. The goal is to provide rigorous design rules for the optimal performance of imperfectly bonded fiber reinforced structures. We consider next the transmission of oscillating electric signals through structural materials possessing imperfectly bonded constituents. We look for new mathematical methods that will deliver structural information from the transmitted signal. These methods will rely on the physics of the imperfect bond separating the constituents. The third project treats the transport of ions in a biological system. The goal is to understand the effect of cell geometry on the ionic transport within living tissue. Last, the small geometries necessary for the layout of very large scale integrated circuits incur high concentrations of the electric field along conducting paths. These concentrations often result in the failure of an electronic devise such as a microprocessor. The conducting paths are often made from aluminum alloys of three or more materials. We seek the best geometries among multi- phase conductors so as to minimize electric field concentrations. The analysis and o ptimal design of multi-phase materials is central to the development of advanced materials for use in electronics, transportation systems, and aerospace structures. From the perspective of human physiology it is critical to understand transport phenomena in complex biological structures. This project addresses areas where improved knowledge of transport properties for multi-phase structures will have impact on technology and medicine. Fiber reinforced structures appear in many applications ranging from golf clubs to the rotors on windmills. Over time the adhesion between the fibers and the surrounding material is compromised by use. We investigate the optimal design of such structures taking into account the imperfect adhesion between fiber and surrounding material. Our goal is to design more durable products that last longer than conventional fiber reinforced products. Next, we investigate how to reduce the failure of microelectronic devices due to high concentrations of electric current. The small geometries used in the layout of integrated circuits require very narrow strips of metal to conduct electric currents. These strips often fail because of the high volume of current that they carry. The conducting strips are often made from a mixture of Aluminum, Copper , and Silicon. We seek the best deployment of the Copper and Silicon in the metal strip to prevent failure. Last, we attempt an improved characterization of inter cellular ionic transport. From the stand point of human physiology, an understanding of such transport for human brain cells may offer early detection of the extent of damage caused by stroke.